Engineering Approaches to Enhancing Secondary Metabolite Production in Plant Tissue Culture

This study will utilize a two stage plant tissue culture system to study the effect of various environmental factors on the control of secondary metabolite production. The model system chosen for this purpose is the production of rosmarinic acid (an antiedema drug) by species of Coleus blumei and/or Salvia officinalis. The environmental factors to be investigated include dissolved oxygen/carbondioxide, shear, and mass transfer. These latter two factors involve the effects of agitation and cell aggregation on secondary metabolite production. The importance of this study is two-fold. First, not only will it be useful to the engineer in obtaining scale-up data for plant suspension cell systems to have a simple model system with which to work, but also the plant physiologist and geneticist prefer plant suspension cultures rather than field crops in which to carry out their experiments. Secondly, experience in working with and scaling up plant cell systems for the production of important chemicals and drugs will become necessary as population growth and its associated housing needs encroaches on land use for agriculture production. Plant cell growth in bioreactors, which can expand in a third dimension compared with only two dimensions for field crops, offers an alternative means of production, particularly of valuable drugs.